FRP Strengthening of Large-Size Concrete Columns

Column wrapping with carbon FRP (CFRP) was used to strengthen rectangular columns supporting the roof of Paris Charles de Gaulle Airport's Terminal 2E after inadequate reinforcement against bursting forces was discovered during construction. The terminal collapse of this year and doubts about its causes have had international repercussions.

This project, with significant financial and in-kind help from industry partners, aims at demonstrating that CFRP strengthening of prismatic members is attainable for the case of large cross-sectional areas. The outcomes of this work will have a broad impact as they will be used to validate prediction algorithms used by design guides; determine the efficiency of confinement as a function of the cross-section shape for large size columns; and provide answers for immediate field problems.